1997 ACS Symposium: Fundamental Investigations of Tribological Interfaces

9705530 Perry Partial travel support is provided for speakers and graduate students attending the 1997 Symposium on Fundamental Investigations of Tribological Interfaces to be held during the 1997 National Meeting of the American Chemical Society. The symposium will explore molecular aspects of tribochemical events, of nanomechanics, and of lubricant design at the molecular level. ***